NSF Minority Postdoctoral Research Fellowship for FY-1999

This action funds an NSF Minority Postdoctoral Research Fellowship for 1999.

The research and training plan is in the area of animal physiology and development and is entitled "Analysis of the function of a putative cell death inhibitor, BRUCE, in the mouse intestine." The aim of the research is to analyze the function of the gene BRUCE in the intestine. BRUCE has several domains that suggest it may inhibit cell death. Since mice lacking BRUCE function have fewer intestinal cells, BRUCE may regulate cell death in the intestine.